Dialog on Diversity in Education: A Transcultural Learning Experience

This award provides funding to Silver Buffalo Consulting, under the direction of Ms. Rose Von Thater-Braan, for the support of a workshop entitled, "Dialog on Diversity in Education: A Transcultural Learning Experience." The Dialog on Diversity in Education will bring together Indigenous, Native American, scholars, educators, elders and language speakers and staff from various NSF Directorates in a shared inquiry on diversity. A goal of this dialog is to encourage the transformation of theory into practicce in developing culturally relevant educational environments that support and encourage Indian participation in science and engineering.